Developing Subject Matter Knowledge in Mathematics Middle School Teachers: A Cross-National Study of Teacher Education as a Follow-Up of TIMSS

ABSTRACT

Proposal number: 0231886
PI: William Schmidt
Institution: Michigan State University
Title: Developing Subject Matter Knowledge in Mathematics Middle School Teachers: A Cross-National Study of Teacher Education as a Follow-up of TIMSS

The project studies in countries how middle school mathematics teachers learn to teach subject matter content as a result of their preparation. Specifically, the study will address:
(1) What is the general structure of teacher preparation in the countries selected? The study will select six countries using criteria such as high levels of achievement in TIMSS, challenging 8th grade curricula, distinctive teacher preparation approaches and "map" the structure of teacher preparation in each country.
(2) What is the mathematical and pedagogical content those preparing to teach eighth graders have an opportunity to learn? The project will select a probability sample of teacher preparation institutions in each country and within it a sample of students in their last year of study to probe their curriculum experiences and mathematical and pedagogical knowledge.
(3) What is the cost-effectiveness of different approaches to teacher preparation?

It is anticipated that results from the study will provide a conceptual framework for comparative study of teacher preparation; help understand the greater diversity of approaches; provide a methodology, indicators and analytic tools to study the influence of teacher preparation on prospective candidates; and provide policy insight on how to improve the preparation of middle school mathematics teachers.